Floral Development of a Homeotic Mutant of Clarkia

This is a Research Planning Grant to enable Dr. Smith-Huerta to initiate studies of floral development in a homeotic mutant of Clarkia. It is anticipated that this award will help Dr. Smith-Huerta obtain preliminary results necessary to launch an independent research career.